ROW: Hybird and Mixed-Use Housing: Documenting a Contemporary Building Type

Hybrid, or mixed-use, housing are residential structures wherein both residential and commercial/retail spaces and activities are located, residents of those structures occupy and manage both spaces; and such housing is intentionally designed to incorporate both spaces. Given the increasing population of homebased workers, a future market demand for such homes is likely. In order to undertake a research study of the development and design of such homes nationwide, certain preliminary activities need to be developed and refined in a planning study: locating cases (which is currently an on-going activity), gathering information of such cases from documents and site visits, and developing a coding instrument for analysis of such sites on characteristics of architectural design and layout, materials, construction techniques, sociodemographics, financial arrangements, codes and ordinances, insurance factors, etc.